Ab-Initio Study of the Finite-Temperature Properties of Novel Magnetic Materials

9705044 Jaswal This senior theorist PI from an EPSCOR state has been awarded this grant to work on a subject of considerable technological and also of fundamental interest. The overall aim in this project is to study the possible ways of increasing the energy content (which has been measured to be at best 1/3 of the theoretically expected amount) of a rare earth-transition metal magnet. Additional goals include an understanding of ways of increasing the transition temperature and the magnetization at a finite temperature. These studies are carried out using a self-consistent spin- polarized electronic structure calculations, incorporating a general, non-collinear magnetic structure. The effects of finite temperature, thermodynamic averaging are carried out using a Monte Carlo procedure. There are plans to apply the insight gained to other problems such as exchange coupled hard-soft magnetic phases and magnetic superlattices. This work is a continuation of a long standing collaboration with an experimental colleague. %%% This senior theorist PI from an EPSCOR state has been awarded this grant to work on a subject of considerable technological and also of fundamental interest. The overall aim in this project is to study the possible ways of increasing the energy content (which has been measured to be at best 1/3 of the theoretically expected amount) of a rare earth-transition metal magnets. The principal approach consists of total energy calculation of electrons in the presence of arbitrary magnetic order. The PI is also planning to study several other magnetic materials such as exchange coupled hard-soft magnetic phases and magnetic superlattices. This work is a continuation of a long standing collaboration with an experimental colleague. ***